REU-Site Program in Chemical, Cell and Tissue Engineering

This award provides funding to Johns Hopkins University for the support of a three-year, REU Site in Chemical, Cell and Tissue Engineering, under the direction of Dr. Michael E. Paulaitis. This ten-week summer program will involve ten students annually in an intensive, challenging research experience in the exciting and rapidly growing areas of biochemical, cell, and tissue engineering. Each student will be closely mentored by an individual faculty mentor and will become a member of his or her research team working on a specific project in the faculty mentor's laboratories. The students will take a required technical communication course that introduces them to the fundamentals of technical writing and oral presentations. Students will present oral and written reports on their research as part of this course. Finally, the Department of Chemical Engineering will sponsor an undergraduate research symposium for students in the REU program as an open forum for presenting their research results.